Conference: Travel Support for the 11th Thermal and Fluids Engineering Conference

The 11th Thermal and Fluids Engineering Conference (TFEC), organized by the American Society of Thermal and Fluids Engineers, will take place March 9 - 12, 2026 on the campus of Arizona State University in Tempe, Arizona. TFEC brings together thermal and fluids researchers from academia, industry, and national laboratories to advance the field and educate the next generation of researchers. NSF support will provide partial travel and registration costs for US-based researchers who would not otherwise be able to participate. Students and post-doctoral researchers selected through a competitive process will receive travel grants to help offset expenses. This support ensures the most deserving and promising junior investigators can participate, facilitating vital mentorship and networking. Ultimately, this sustains and enhances the vibrancy of the US thermal and fluids engineering enterprise.

The thermal and fluids engineering research and education community addresses critical national challenges, including industrial process heating, building efficiency, data center cooling for AI, electronics thermal management, and aerospace propulsion. NSF funding will support the research community in discussions and critiques of current work while enabling junior investigators, including students and post-doctoral researchers, to receive feedback on their findings and engage with leaders in the field.